Increasing Evaluation Expertise of SMET Professionals

The Evaluators' Institute provides high-quality short-courses taught by nationally recognized experts in the evaluation field. Courses are scheduled to allow participants to take 2-3 courses over the period of a week. This SGER will test whether SMET professionals can be involved in these courses by offering $1000 Tuition scholarships. Since the Evaluators' Institute is providing courses this summer and a limited set again in the fall, decisions about future planning by the Evaluation Program can be made in a timely manner.